East Coast Computer Algebra Day, University of Delaware, Newark, Delaware, April 8, l995

This meeting was addressed by invited speakers who have made outstanding contributions to the field of computer algebra. The speakers anchored the meeting and helped attract participants from the computer algebra or computational scientific/engineering communities from the eastern half of the US. The invited talks and poster sessions contributed by the community covered the breadth of algebra: algorithms, software, and applications. The principle theme of this l995 meeting was applications. The purpose of this meeting was to stimulate interest in and to enhance understanding of the technical aspects of computer algebra, by providing a way for those in the region who are active or interested in becoming more active in computer algebra to meet with each other in an inexpensive and easily accessible way.